Enhancing Analytical and Physical Geography Curriculum at the University of Kansas

Geographic information systems (GIS) is an area of study causing increased excitement among students. This project, therefore, strives to enhance this area of geography by accomplishing specific objectives to improve the curriculum. New undergraduate courses, internships, and programs are being added, and a specific plan has been developed for enhancing four analytical geography courses. This plan also involves redesigning courses, updating laboratory computing and digital data analysis equipment, and redesigning laboratory exercises to incorporate the use of new analytical capabilities. It is also expected that the physical geography curriculum will be improved by incorporating modern image display and geographic information analysis capabilities into existing laboratory and field exercises.